Bayesian Methods for Large-Scale Applications

ABSTRACT

PROPOSAL NUMBER.: DMS-0505599
INSTITUTION: Rutgers University New Brunswick
NSF PROGRAM: STATISTICS
PRINCIPAL INVESTIGATOR: Madigan, David
PROPOSAL TITLE: Bayesian Methods for Large-Scale Applications

The investigators work on Bayesian statistical methods for large-scale
applications. Three applications provide the backdrop for the work.
"Text categorization" concerns the automatic assignment of documents
to predefined categories and requires ultra-high dimensional supervised
learning models. "Authorship attribution" uses similar methodology
but attempts to identify authors of anonymous documents.
The "Localization" problem uses signal characteristics to locate users
in wireless networks. The investigators focus on technical challenges
that span these applications including sequential Bayesian analysis,
non-linear optimization, and novelty detection algorithms.

In both the business and scientific realms, computing advances have
drastically altered the role of data analysis. Historically, analysts
produced data locally to address specific research questions. Now,
ubiquitous computing and cheap storage have decoupled the production
of data from the research questions. Data of all kinds are produced
and deposited in remotely accessible databases with myriad questions
in mind, both foreseen and unforeseen. Statistics has historically
focused on squeezing the maximum amount of information out of limited
data. The investigator's work focuses instead on so-called
Bayesian statistical methods for these emerging larger-scale applications